Macrocyclic Pyrrolizidine Alkaloids: Anabolism and Catabolism

This project will be supported by an award from the Chemistry Office of Special Projects under the aegis of the Chemistry of Life Processes Initiative. The studies will focus on the macrocyclic pyrrolizidine alkaloid (PA) class of natural products. The PAs have attracted much attention from the scientific community as a consequence of their wide spread occurrence in nature, their challenging structural features, the numerous physiological effects they elicit, and their worldwide health and agricultural implications. Despite this significance, a number of fundamentally important aspects of PA chemistry and biology remain unanswered. In the current study, two issues central to the understanding of PA biosynthesis will be addressed: 1) The determination of the latter stages of PA biosynthesis with particular attention to be paid to anabolism of the macrocyclic ring. 2) The determination of the products formed by the turnover or degradation (catabolism) of the PAs.